Research on Quantized Fields and Gravitation

We are recommending support of Professor Ford's investigations into the relationship between quantum field theory, gravitation and cosmology. One of the strange and critical problems which Professor Ford shall investigate is the effect that fluctuations of locally negative energy, permitted by quantum field theory, would have on the gravitational field.